High Performance Network Connection for Knowledge Discovery Research

The proposal plans to connect Temple to the MAGPI GigaPoP and then to the Abilene Advanced Network for the purpose of advancing research in the following areas:
Protein Disorder Analysis
Data-Reduction for Spatial-Temporal Knowledge Discovery
Mining Human Brain Data